Understanding the Active Sites in Selective Alcohol Synthesis with Promoted Rh Catalysts

1067020
Klie

One of the largest societal challenges of our time is the quest for alternative fuel resources that will reduce our current greenhouse-gas emissions and dependence on foreign crude-oil. Of particular interest has been the production of ethanol from cellulosic biomass as a fossil fuel additive/replacement. However, traditional fermentation routes to alcohols are often slow and inefficient, while chemical routes to alcohols are dominated by acid catalyzed processes which generate significant waste. Principal Investigators Robert F. Klie and Randall Meyer from the University of Illinois at Chicago believe an alternative route is the best choice, if it can be made to be an efficient catalytic process. In this proposal, the viability of converting syngas derived from gasified lignin (which is abundant, cheap, and has few competing applications) to ethanol and other alcohols using heterogeneous nano-catalysts will be studied. The key is to harness the unique activity of rhodium for oxygenate production in the Fischer-Tropsch reaction. The PIs will concentrate on developing a fundamental understanding of how efficient synthesis of ethanol can be achieved on promoted rhodium catalysts. Unfortunately, the majority of CO hydrogenation studies using unpromoted Rh catalysts have demonstrated a strong selectivity for methane with a low oxygenate selectivity. A significant improvement with regard to alcohol selectivity is necessary. According to the PIs, the key for improvement of this process lies in unlocking the secrets of catalyst promoters.

The PIs are convinced that substantial gains can be made through a detailed investigation of active sites responsible for highly selective and active conversion of syngas into alcohol. If the site can be unambiguously identified then synthesis methods can be developed to properly target its creation, resulting in the highly active and selective catalyst desired. Characterization methods are key to this. However there is an information gap between the extensive information that can be extracted from the many conventional spectroscopic techniques (without the ability to define the location), and what can be obtained from traditional microscopy techniques (without the ability to characterize composition and bonding). In order to circumvent these limitations, the PIs will combine their expertise in two dissimilar areas, chemical engineering and condensed matter physics to form an interdisciplinary research team. The combination of Z-contrast imaging, electron energy loss spectroscopy (EELS), and first-principles modeling using density-functional theory (DFT) can potentially fill this "information gap. The strengths of this effort lie in the PIs ability to synthesize promoted Rh nano-catalysts, characterize their atomic and electronic structures on the atomic scale and correlate these with the selective alcohol formation using ab initio density functional theory (DFT) calculations.

To achieve this goal, the PIs will combine their expertise in two dissimilar areas, chemical engineering and condensed matter physics to form an interdisciplinary research team. This research aims at contributing basic materials science knowledge that will aid the understanding and development of new capabilities for potential next generation nano-catalysts. An important feature of this program is the integration of research and education through the training of students in both experimental and theoretical materials science. This will be of great value to the graduate students in the groups. In addition the school and the PIs are well-integrated into very strong minority and STEM programs which are a feature of the broader educational impacts of this project.